Geochemical and Structural Evolution of Gabbro-Hosted Magma-Hydrothermal Systems: East Greenland

The PI continued study of the geochemical and structural evolution of gabbro-hosted magma-hydrothermal systems during crustal rifting between Greenland and Eurasia and formation of the N. Atlantic ocean basin. Four specific topics will be addressed: (1) relations between vein systems and magmatic and structural deformation of gabbro bodies, (2) what controls mass transfer associated with hydrothermal alteration, (3) what is relation between mineralogic and isotopic alteration, and (4) what are sources of hydrothermal solutions and when did sea water become an important component of these fluids. A variety of field, petrologic, mineralogic, and theoretical methods will be used to answer these questions.